Teaching Improvement through Mathematics Education (TIME)

This project is designed to increase participants' knowledge of contemporary mathematics and techniques for teaching contemporary mathematics, and unify the secondary school mathematics program. For each of the two years, 35 teachers of grades 9-12 will enroll in a 12-credit program that will be taught by a team of mathematicians and mathematics educators who will integrate the mathematics content and teaching methodology into the program. Participants will be expected to implement TIME materials and ideas in their classes and to share project materials and ideas with their colleagues. Participants will be selected from the New York Metropolitan area. A handbook will be produced that includes course outlines, course notes, approaches, techniques, bibliographies, and other materials suitable for use by college-school cooperative programs throughout the United States.